Postdoctoral Research Fellowships in Chemistry

Dr. Jonathan A. Ellman has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Ellman's doctoral degree was from Harvard University under the supervision of Professor David Evans. Dr. Ellman intends to continue research at the University of California at Berkeley under the sponsorship of Professor Peter G. Schultz. Dr. Ellman's area of postdoctoral research will be site-specific incorporation of synthetic amino acids into proteins by enzyme-catalyzed acylation of tRNA or by chemical synthesis of aminoacyl tRNA. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.